International Symposium on Environmental Hydraulics to be held in December 2001 in Tempe, Arizona

Abstract
CTS-0004036
D. Boyer, Arizona State University

The 3rd International Symposium on Environmental Hydraulics with a special theme in urban fluid dynamics will be held in Tempe, Arizona in December 2001with Dr. Boyer as the Chairperson. The overall theme of the Symposium is the application of basic research to address issues facing policy makers in the management of air and water resources. Several invited speakers will evaluate the present state of knowledge. A number of oral and poster sessions in environmental hydraulics and in urban fluid dynamics have been planned and the session Chairs have been assigned. It will provide researchers in this field an excellent opportunity for open exchange of ideas.